Developmental Methods for Automatic Discovery of Object Categories

The goal of this project is to develop systems that autonomously learn
to detect and track objects in video images. Current approaches
require large training datasets for which the object of interest has
been manually segmented by human operators. This process is very
laborious and time consuming, greatly limiting progress in the
field. This is arguably the main reason why computer vision technology
has not found a niche yet in every-day life applications. In this
project new machine learning and machine perception systems are being
explored that avoid the manual segmentation step. The training input
to these systems is a video dataset of unlabeled, naturally moving
faces in various background conditions. The target output is a state
of the art face detection system. The approach being explored is
based on the idea that one can develop sophisticated object detectors
in an unsupervised manner by biasing the training process using an
ensemble of low-level interest operators (motion, color, contrast).

This project is expected to provide a new class of machine learning
and machine perception algorithms that train themselves by observation
of vast image datasets. The use of large datasets is expected to make
a critical difference on the robustness of the systems and to allow
them to handle realistic every-day life environments. Such systems
would have significant applications in education, security, and
personal robots. Besides its practical applications, this project has
the potential for broad scientific implications in machine learning,
machine perception, and developmental psychology.